Lattice Field Theory and Hadronic Physics

Quarks carry a color charge and nuclear matter is formed from the
binding of colored quarks mediated by gluons. Quantum Chromo-Dynamics
(QCD) is the theory that describes the interaction of these color
charges. Experiments have shown than quarks come in three colors but
all nuclear matter is color neutral. Separation of nuclear matter into
quarks and gluons needs very large energies similar to what was
present in the early universe. Since solving QCD with three colors
have proven to be very difficult and since qualitative properties do
not depend on the number of colors, an attempt following 't Hooft is
made to solve QCD for a very large number of colors. We have already
shown that quarks form a colorless condensate and we have also
succeeded in computing the properties of the lightest colorless
particle - the pion. We will attempt to compute the masses of other
heavier colorless particles as part of this proposal. We will also
attempt to study the effect of temperature thereby showing evidence
for the formation of nuclear matter from a primordial soup of quarks
and gluons.

The scientific methods involve analytical calculations and numerical
computations. A graduate student and several undergraduate students at
FIU will make significant contributions. Large scale computer clusters
at national labs will be used for numerical computations and the
results obtained as part of this proposal will be presented at
international conferences in nuclear and particle physics.